Award For Creativity in Engineering

The proposed research plans to improve the performance of trellis coded modulation. Trellis coded modulation (TCM) improves the noise performance of digital transmission without increasing the required bandwidth or reducing the effective data rate. The performance improvement reduces the power requirements for transmission at a specific data rate. %%% The primary goal is to investigate methods of analytically evaluate the distance of TCM codes. In developing a simple, effective method to evaluate TCM codes distances, comparison of codes will be facilitated. In addition, it is hoped that the analytical evaluation method will lead to a code design method which increases TCM code performance. The evaluation technique will be confirmed by computer simulations.